Instrumentation for Improving Undergraduate Instruction in Gas Chromatography

Gas Chromatography is being integrated across the curriculum with the concepts, practice and specialized uses of modern separations technology being employed. Significant improvement in the laboratory component of the curriculum is resulting with the introduction of both general purpose and research grade GC instruments. Three general purpose GC instruments have been purchased in order to introduce chromatography concepts to General Chemistry students. They are being used as an integral part of sample analysis in the Organic Chemistry laboratory and as a quantitative analysis tool for the Analytical Chemistry laboratory. A research grade capillary GC coupled with a chromatography workstation and a purge and trap analyzer has been purchased for use in the Advanced Analytical and Organic, Physical, Inorganic, and Individual Research courses. Efficient GC separations, computer collection and manipulation of data, and the ability to study a wide variety of samples utilizing purge and trap techniques is allowing new, relevant laboratory experiences to be offered to chemistry majors, and is enhancing student research capabilities. The grantee is matching the award from non-Federal sources.